Gilbert Symposium on Global Seismology: The Current Status and Future Directions

This grant is for support of an international symposium on "Global Seismology: the Current Status and Future Directions" to be held in San Diego, California, in the Fall of 1991. The grant will provide partial travel expenses of symposium participants. Matching travel support will be provided by the host institution, Scripps Institution of Oceanography, along with general conference support.